Experimental Study and Modeling of Subcooled Bubbly Boiling Flow

This proposal seeks to study experimentally fundamental heat transfer issues for subcooled bubbly boiling flow in the annulus between two tubes, the inner one heated. In such flows, heat transfer can take place between the walls and the vapor, between the walls and the liquid, between liquid and vapor, and latent heat is absorbed in the vaporization process. By means of very detailed measurements of time resolved velocity, temperature, and by flow visualization, the author hopes to gain the basic knowledge to formulate a more comprehensive theoretical model than presently exists. In particular, the PI hopes to investigate the role of turbulence in this process. He proposes to do this for two fluids, R113 and water to determine the extent of universality of his conclusions. The final objective of the work is to develop a mechanistic model of subcooled boiling flow on the basis of these measurements.